Development and Experimental Verification of the Distribution-Moment Model of Muscle

9419528 Heckman The research proposed in this application concerns a quantitative understanding of the dynamics of skeletal muscle. The project has two major objectives: (1) to continue the development of a model of muscle firmly based on biophysics and biochemistry, and (2) to test and validate the model in carefully controlled animal experiments. The model is a mathematical approximation to A.F. Huxley's biophysical cross-bridge theory of contraction. Current models for a most important element of the neuromuscular control system-its actuator, skeletal muscle-have tended to be rather crude viscoelastic analogies with only the most tenuous connection to modern biological concepts about how the muscle works. A state-variable model of a skeletal muscle fiber as a direct mathematical approximation to biophysical cross-bridge models of the type introduced by A.F. Huxley will continue to be developed in this project. This model is call the Distributed- Moment Model of muscle because it emphasizes the important role of the moments of the actin-myosin bond-distribution function. These moments have macroscopic interpretations as muscle stiffness, force, and elastic energy. Thus it is of particular significance that this model establishes a direct connection between the macroscopic behavior of muscle and contractile mechanisms believed to be operating at the molecular level. The project is a joint effort with Heckman at Northwestern University (grant number 9318631). ***